Exploratory Study of Dynamic Stability of Variable Mass Systems

An exploratory study on novel ways of modeling and studying the dynamics of variable mass systems will be conducted. An attempt will be made to find a mathematically sound and efficient methodology for characterizing such systems, and novel methods of dynamical equation derivation that avoid unacceptably drastic simplo=ifying assumptions. Finally, a cursory look will be taken at the effects of structural flexibility of the solid phase on the dynamics of the whole system.